Global Convergence Processing of Stereoscopic Images

This study will examine 3-D video display systems for remote control applications. The proposed system will not require special viewing apparatus and is compatible with existing TV systems. The system could prove useful in simulation and training systems, robotic vision, and entertainment systems.